Batch System High Performance Computer for Numerical Analysis and Statistics

9508414 Royster The Department of Mathematics at the University of North Carolina at Charlotte will purchase computer equipment which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects, including in particular the work of three Numerical Analysts and two Statisticians. The department started a new Ph.D. program in Applied Mathematics in August, 1994. The new equipment purchased will also be used to support research in the new doctoral program in computational mathematics and applied statistics.